SGER: Alkaloid Transport in Nicotiana Tabacum

The objective of this project is to characterize a Nicotiana tabacum membrane transporter that
may be responsible for the transport of alkaloids from their initial site of biosynthesis in roots to
xylem tissue and for their final accumulation in leaves. This will be accomplished by using a gene
fragment previously isolated during transcriptional profiling experiments as a hybridization
probe to isolate the full-length cDNA. With this cDNA in hand, an extensive effort will be made
to determine the tissue and intercellular localization patterns of the putative alkaloid transport
protein, using both RNase protection assays and transgenic reporter gene fusions. Biochemical
confirmation of alkaloid transport activity will be accomplished by heterologous expression of
the putative alkaloid transporter in Xenopus oocytes and directly measuring alkaloid transport
kinetics. Finally, in vivo modulation of the putative alkaloid transporter gene expression levels
will be achieved using overexpression and antisense transgenic hairy root cultures to assess the
effect on overall alkaloid accumulation levels. These experiments may lead to the first
identification and molecular characterization of a postulated alkaloid transporter that is
responsible for mobilizing alkaloids between their site of biosynthesis in specific root cell types
towards their site of action in the leaves. This would be a significant contribution to
understanding both how and why the site of biosynthesis of many plant secondary metabolites is
often spatially separated from the site of action of these important defense compounds.